Parallel Algorithms and Methods for Solving Macromolecular Structures

9301210 Lynch This award will support the collaborative effort between computer scientists Lynch, Rice, and Marinescu and biologist Rossman. The principal research issues to be addressed are: 1) The analysis of biological macromolecular structures, with emphasis on viruses, virus-receptor and virus-antibody complexes; the study of new antiviral compounds that interact with viral capsids, interfere with viral-receptor interaction, or inhibit uncoating. 2) The development and analysis of parallel algorithms for film and imaging plate processing, phase determination by molecular replacement, refinement and structure analysis in the study of biological macromolecular molecules or assemblies such as viruses. ***